Purchase of a Routine High Field Nuclear Magnetic Resonance Spectrometer

This award from the Chemistry Research Instrumentation Program will help the Department of Chemistry at the University of Wisconsin at Madison acquire a 300 MHz NMR spectrometer. This new spectrometer is urgently needed in order to continue research programs in a number of areas supported by the NSF, including bio-inorganic, organic, organometallic, and polymer chemistry. Nuclear Magnetic Resonance (NMR) Spectroscopy is the most powerful tool available to the chemist for the elucidation of the structure of molecules. It is used to identify unknown substances, characterize specific arrangements of atoms within molecules and to study the dynamics of interactions between molecules in solution. Access to state-of-the-art NMR spectroscopy is essential to chemists who are carrying out frontier research. The results from these NMR studies are useful in areas such as polymers and catalysis, and in biology.